Engineering Research Equipment Grant: A HPLC System for theResearch on Ion Exchange of Amino Acids and Proteins

This grant will enable a high performance liquid chromatography (HPLC) analyses to be purchased for use in studying ion exchange reactions in mixed systems.